Promoting Student Participation in the North American Power Symposium at Texas A&M University in College Station, TX on October 15-16, 2001

In this project, a plan is outlined to continue the efforts of the Student Meeting Activities
Subcommittee of the Power Engineering Education Committee of the IEEE Power
Engineering Society (PES) to promote student interest in the power engineering field by
sponsoring electrical engineering students from US universities to attend the 2001 North
American Power Symposium to be held at Texas A&M University in College Station,
Texas. The goal of this project is to provide an opportunity for students to be exposed to
the most recent developments in operation, construction, and research in the power
engineering field. This is a particularly critical time for power engineering as the
industry undergoes significant change due to the restructuring of the traditional utility
structure. The career opportunities for students interested in power engineering are many
and varied; the program offers students several opportunities to interact with faculty and
students from other universities in the power area.